Collaborative Curriculum Enhancement: Undergraduate Instruction in Chemistry, Biology, Computer Science and Forensic Science

Interdisciplinary (99) An interdisciplinary team of faculty and administrators introduce students and educators in the use of analytical techniques and curricula associated with the broad scope of chemistry, biology and computer science in order to launch a new, undergraduate program in forensic science. The project incorporates the area of computer-related crime into the course of study. The project also produces a short course in forensic science for the interdisciplinary team, examines a variety of other university curricula and produces laboratory and classroom pilot projects.